Robotics System for Physical Mapping of Fungal Genomes

Physical maps of whole chromosomes have placed an essential role in a number of fundamental breakthroughs in genetics. The completion of high resolution physical maps of three model genetic systems, Aspergillus nidulans, Neurospora crassa, and Magnaporthe grisea, and of other fungi such as Nectria haematococca, is likely to open up new avenues of research on the molecular and evolutionary genetics of fungi. By building a 29 kilobase (kb) resolution physical map of the A. nidulans genome, we have made the striking observation that there is an alternating banding pattern in the distribution of repeated sequences along the chromosomes of A. nidulans. This observation has implications for development, functional organization of genomes, chromosome structure and function, recombination, and genome evolution. In this proposal we plan to specify and acquire a robotics system for physical mapping which will enable several laboratories to ascertain whether or not other filamentous fungi, such as N. crassa and M. grisea, share this banding pattern in repeated sequences along their chromosomes. This robotics system will be maintained by the Fungal Genome Resource (FGR) at the University of Georgia and will serve the fungal genetics community as a whole by providing an array of new experimental strategies to address a broad class of problems in fungal ,genetics.